Purchase of a CCD-Based X-Ray Diffractometer

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will assist the Department of Chemistry at University of California@Irvine acquire a CCD-based area detector system for single X-ray structure analysis. This equipment will enhance research in a number of areas including the following: (1) preparation of oligomeric and polymeric ligand-bridged transition metal compounds, (2) synthetic organolanthanide chemistry, (3) synthesis and reactivity of silsesquioxanes, (4) luminescent and redox-active supramolecular systems, (5) design, synthesis, and study of artificial beta-sheets, and (6) synthetic organic chemistry The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules